Polarized Electron Scattering from Nucleons

We propose a program of polarized electron scattering experiments, to use the weak neutral
current and electromagnetic probes to study the flavor content and spin structure of the nucleon,
and to conduct a search for new physics beyond the Standard Model. The experiments will be
conducted primarily at the Thomas Jefferson National Accelerator Facility (Jefferson Lab).
A series of experiments using parity violation in electron scattering at Jefferson Lab are
focused on determining the elusive strange quark contribution to the nucleon ground state. These
experiments include measurements in Hall A of the parity-violating asymmetry in forward-angle
scattering from the proton, 4-He, and 208-Pb, at low momentum transfer. The G0 experiment in
Hall C will measure parity-violating scattering from the proton at both forward and backward
angles, and for a range of momentum transfers, and thus will definitively map out the strange
quark vector form factors for the nucleon as a function of four-momentum transfer.
A groundbreaking experiment has recently been approved at Jefferson Laboratory to
measure the weak charge of the proton. The Qweak experiment will provide a precision test of
the energy scale dependence of the weak mixing angle by precisely measuring the Weinberg
angle at low momentum transfer and comparing to data from high-energy experiments. This will
provide a uniquely sensitive probe of physics beyond the Standard Model. We are thus
addressing possibly the single most important question in fundamental physics: how and where
does the Standard Model break down? We have taken on an important component of the Qweak
experiment, the Region III tracking chambers, the construction of which has been recently
funded by an NSF Major Research Instrumentation grant.
Another series of polarized electron scattering experiments at Jefferson Lab are focused
on determining the spin structure of the nucleon using polarized 3-He targets. The GEN
experiment will make the first measurement on the neutron electric form factor at large
momentum transfers. This is particularly relevant given the recent controversial results for the
electric form factor of the proton and new theoretical work on two-photon exchange
mechanisms. In support of this program, research into promising new technology involving
hybrid K-Rb cells is underway in the W&M polarized target lab.
This physics program has a large educational component; eleven PhD graduate students
are working on group-related activities, and support is requested from the NSF for five of these
students. Each year we supervise an average of seven undergraduates in summer or senior-thesis
research. Support for 1.5 post-doctoral positions is also requested from the NSF. The proximity
of our group to Jefferson Lab, its strong ties to Jefferson Lab through affiliated faculty, and its
ability to attract excellent William and Mary undergraduate students, ensure the success of the
proposed research.